Equipment for Upgrading Modern Physics Laboratory

This is a proposal to upgrade the equipment of a small religious liberal arts college by the purchase of several significant pieces of physics equipment. It is also proposed to share this equipment with other laboratories at the institution and with another small state university in the same city.//